REU/RUI: Cytogenetic and Microspectrophotometric Investigations of Multinucleate Marine Green Algae

Working with talented undergraduates, Dr. Donald Kapraun of the University of North Carolina at Wilmington will study several groups of marine green algae, using modern methods of microscopy including microspectrophotometric measures of DNA content. The work focuses on basic patterns of chromosomal change that accompany speciation in three major groups of multinucleate green algae. Information will be obtained concerning: basic chromosome number; symmetry of chromosome complements; euchromatin and heterochromatin content; nuclear DNA quantity; and guanosine- cytosine content in nuclear DNA. The objective of the research is to determine what chromosomal modifications correlate with species diversity in the three groups of marine green algae. In conjunction with morphological features and other evidence, such data should prove useful in reconstructing phylogenetic relationships among these plants. In addition, the study will determine whether marine multinucleate forms, including cellular, septate coenocytes and non-septate coenocytes, manifest particular and unique types of chromosomal transformations.